Model-Based Indicator Systems for Informing Science Education Policy

The purpose of this proposal is to develop cross-sectional and longitudinal models of science education from an indicator system perspective and explore the policy implications of those models. The proposed research will be carried out in three phases taking approximately three years. In Year 1, newly released NELS: files and other relevant data sets such as the IEA science data for the United States and LSAY will be obtained and evaluated for their utility in the development of a science education policy guidance system. In addition, technical modeling issues will be address.